Workshop on Systems Software and Tools for High Performance Computing Environments, Pasadena, CA, April 13-16, 1992

This workshop will bring together experts from industry, universities, and government to review current systems software and tools for high performance computing environments and to identify needed developments. The workshop will indicate software development priorities and mechanisms for creating that software. The workshop will provide input to emerging HPCC research and development plans.